International Masonry Standards Development

This supplement will enable the Masonry Society to host the 1988 meeting of the Commission W23, "Wall Structures" to be held at the University of Texas-Austin. The meeting is in accordance with the objectives and goals of the project to participate in the development of international standards.